A Program for Preparing Middle School Mathematics Teachers

This project will develop a comprehensive program for preparing middle school mathematics teachers in an urban setting. Instructional materials for nine courses (8 content and 1 method) specifically designed for a middle school mathematics program will be developed. These will be presented in an instructional mode that stresses active exploration, concept development, visual reasoning, and the integrated use of calculators and computers as the dominant computational tools. The materials to be developed for each course include a Course Guide with topical commentary, student assignments, reading lists, and a bibliography and Class Activities. The activities will be used in field experiences and in student teaching. The materials will be produced with the desktop publishing facilities of Portland State's Math Learning Center and will be suitable for widespread distribution or commercial publication. The materials will be evaluated carefully during development and implementation. The project staff includes mathematics educators, research mathematicians, and classroom teachers.